International Symposium on Ecological Effects of Arctic Airborne Contaminants

9320521 LANDERS Many serious environmental problems are transboundary in nature and can only be adequately dealt with through international cooperation. As has been noted by both scientists and policy makers, this is especially true of the Arctic regions. The links between airborne contaminants and Arctic flora and fauna have not been adequately studied or understood. In addition to documenting the current state of knowledge regarding ecological effects of airborne contaminants, an international symposium will facilitate the planning of further scientific investigations and help lay the groundwork for informed environmental policies. This proposed international symposium on the ecological effects of arctic airborne contaminants will take place in Reykjavik, Iceland, in October 1993. ***